Toxicity Testing in Wastewater Treatment Plants: Application of a Short-Term Assay Based on Induction of the Lac Operon in E. Coli

As a result of increasing demand for chemicals, the industrialized world faces the problem of release of these often toxic substances in the environment. There is therefore a need to assess the impacts of these toxicants on the environment. The major objective of this research project is to develop an enzymatic toxicity testing method. The enzymatic activity of betagalactosidase in E. Coli will be used as the toxicity testing mechanism. Various toxicants including inorganic and organic substances will be used for study. The toxicity assay will be further studied to better understand the effects of toxicants on enzyme induction by a gratuitous inducer such as isopropylthiogalactoside (IPTG). The development of a miniaturized test and the use of immobilized E. Coli cells will also be considered. Various means to: sensitize E. Coli cells to environmental toxicants will be explored. The principal investigator is highly qualified to perform this research. A two year continuing grant is recommended. This award is for $90,198 for the first year.